International Conference on Unconventional and Photoactive Solids, Cleveland, Ohio, September 1985 (Materials Research)

The purpose of the conference is to bring together academic workers who deal with fundamental aspects of certain phenomena with industrial workers who are concerned with certain more practical problems that are impeding progress of technology. The academics are concerned with such fundamental phenomena as fractal aspects of reaction rates or energy transport, and energy transport on the picosecond or femtosecond time scale in simple "model" systems (such as naphthalene). The industrial people are concerned with such problems as bulk information storage using optical methods or detection of single molecules, and with such systems as polymeric films and amorphous materials. This conference, which will be dominated by discussions on organic materials, will enrich the basic science activities while laying the groundwork for more rapid technological progress.